A Continent Transformed (A Five-part Prime Time PBS Television Series)

WGBH/Boston in association with the Chedd-Angier Production plan the production of a series of five one hour public television programs on the environmental history of North America, "A Continent Transformed". Each of the programs will emphasize a key process which has shaped American environmental history: biological invasion, drawing boundaries, linking transportation and market systems, projecting ideals onto the landscape, and increasing the pace and complexity of systematic change. The principal author of the series and its on camera host will be William Cronin, a leading ecological historian. The series will be assisted by a prestigious Advisory Board, educational materials will be developed for series classrom use, and 8 million viewers should see each episode when the series airs in the Fall of 1992. NSF support will represent approximately 10% of the project total.